Studies on Wealth-Varying Intertemporal Elasticities of Substitution

This project measures the systematic differences in the intertemporal allocation of consumption chosen by rich and the poor consumers and the impact that those differences have on the intertemporal allocation of aggregate consumption. The results of this research could provide important new insights into the reasons why countries differ in economic growth rates, aggregate consumption and savings. Previous work by the investigators demonstrates that systematic differences in the attitudes of the rich and the poor toward the allocation of their consumption expenditure over time can lead to significant effects of the level and cross-sectional distribution of consumption on aggregate consumption growth and saving. This project studies wealth based variation in the intertemporal allocation of consumption caused by differences in preferences and market imperfections. The research on differences in preferences is a continuation of work by the investigators on measuring the aggregate impact of differences in the intertemporal elasticity of substitution (IES) across poor and rich consumers. The previous work assumed complete markets. This project investigates whether or not preference parameters estimated and estimates of the aggregate IES under the complete market assumption is severely biased by simulating data from an economy with borrowing constraints. Both differences in preferences and incompleteness of markets are incorporated into the theoretical analysis. The project distinguished empirically between different models of incomplete markets by testing whether the idiosyncratic impact of unemployment and illness on consumption is temporary or permanent.